CAREER: Securing Broadband Cellular Data Networks

Cellular networks are part of our critical information infrastructure.
However, the upcoming broadband cellular data networks and mobile
devices have unique vulnerabilities that have attracted little
research attention. The PI proposes a five-year plan for
understanding the inherent vulnerabilities and developing technologies
for improving the security of cellular data networks and mobile
devices. Particularly, the PI will focus on the following unique
vulnerabilities in cellular data systems: (1) Scarce battery power in
mobile devices; (2) Expensive wireless bandwidth; (3) Scarce wireless
resources shared among benign and malicious mobile devices. To
address these vulnerabilities, the PI proposes a comprehensive
solution consisting of three components: (1) On mobile devices,
designing and enforcing access control policies on power consumption;
(2) At mobile switching centers (MSC), designing and deploying
firewalls configurable by individual mobile devices but verifiable by
the MSC; (3) At base stations, detecting malicious mobile devices that
abuse shared resources.

This project will have direct, visible impact on improving the
security of broadband cellular data networks. The discovered
vulnerabilities and proposed defense mechanisms will help cellular
providers secure their networks proactively before the adversaries
deliver devastating attacks. Experiences gained in this project will
help guide the security design of future cellular data networks. The
novel analysis, simulation, and evaluation techniques developed in
this project will be valuable to teachers and researchers in
in security, networking, and programming languages.

The proposed education mission is to train students to become capable
security researchers or practitioners through classroom teaching,
real-life problem solving, and research advising.